PRF/J: The Consequences of Extra-pair Fertilization for Males and Females of the Western Bluebird (Sialia mexicana)

In recent years, genetic evidence has revealed that extra- pair mating is more widespread in apparently monogamous bird species than previously thought. The costs and benefits of extra-pair mating are poorly understood for males and females because of a paucity of data and because, until recently, the genetic techniques available were inadequate for determining paternity in natural populations. In this study, parentage of young in nests of western bluebird (Sialia mexicana) pairs in central coastal California will be determined, and behavioral, demographic and genetic data will be used to address the functional consequences of extra-pair mating. Parentage of young in nests where more than one male cares for young will be determined, as well as whether supernumerary males are nonbreeding helpers or actually father offspring in the nests at which they feed. This study will clarify the mating system of the western bluebired and will help to shed light on the extent and success of extra-pair mating as a reproductive alternative to strict monogamy.